Broader Impacts: A Showcase Poster Symposium at the ACS National Meeting

This award supports a poster symposium at the Fall 2005 American Chemical Society Meeting in Washington DC. This large professional meeting presents a unique opportunity to inform the chemistry community --including awardees, proposers and reviewers -- of the broader impacts of currently supported NSF awards. Approximately 50 examples of broader impact activities will be showcased in a poster symposium. These examples will also be available via a website and CD-ROM.